A Workshop on Compiler Infrastructure

The workshop has a simple purpose: to explore the feasibility of designing, building, and using common infrastructure. The key working product of the meeting will be a document that addresses the following issues: 1. Can we agree on a common set of representations to support our varied research efforts? 2. How can we design these representations and their support software? 3. What would it cost to design, implement, adopt, and maintain them? The final point of consensus should be a recommendation for how to proceed after this workshop.